Atomic and Nuclear Interference Phenomena in Solids

This experimental research program is focused on extending the field of atomic interference into two important directions: (i) from gaseous to solid media and (ii) from atomic to the nuclear transitions. The specific objectives pursued within the program include working toward the first experimental demonstrations, and associated theoretical studies, of the following phenomena: 1) Electromagnetically induced transparency in the lambda and double lambda schemes and efficient four-wave mixing at room temperature in a solid. 2) Suppression of excited state absorption at the transition from an excited populated energy state to the continuum of states using pumping in the form of a pulse train that provides Electromagnetically Induced Transparency (EIT) for itself. 3) Influence of laser radiation on the time-resolved synchrotron radiation spectra. 4) Effects of laser radiation on the Mossbauer spectra caused by magnetic dipole-dipole interaction of the nuclear and electronic spins. 5) Nuclear interference effects via the coincidence technique. 6) EIT at gamma-ray transitions induced by laser radiation. The broader impact of the program involves student training.